Laser Scanning Microscope for Three-Dimensional Microscopy

The purpose of this fundamental bioengineering research is to determine the means for providing three-dimensional images of single, living cells. The PI will conduct a research program of experimental and theoretical investigations designed to reconstruct the cellular anatomical three dimensional image. Such studies should illuminate anatomical and physiological processes in real time. Information from such studies could have a significant influence upon the investigation of cellular physiological processes.